Southern Standard Stars for the u'g'r'i'z' Filter System

AST-0098401
Smith

The u'g'r'i'z' filter system, developed for use for the Sloan Digital Sky Survey (SDSS), has recently gained rapid acceptance as a major filter system for the coming decade's wide-field astronomical projects -- projects which will be conducted at both northern and southern hemisphere observatories. The SDSS, however, is a northern hemisphere survey, and the present network of 164 u'g'r'i'z' standards, established especially for use in SDSS operations, is geared for northern hemisphere observations. To meet the need for southern u'g'r'i'z' standards Dr. J. Allyn Smith, at the University of Wyoming, will lead a program to use the facilities of the Cerro Tololo Interamerican Observatory in Chile to calibrate a series of southern standards. This project is intended as a service to the general astronomical community. As such, quick availability of the data product - a catalogue of calibrated southern u'g'r'i'z' standard stars - is a high priority. The intent is to make interim versions of the southern standard star catalogue publicly available at the end of each of the four years of the project. Within months of the completion of all observations, a final calibrated catalogue will be made available. Both the interim and the final catalogues will be published on a publicly accessible internet site. The final catalogue will also be published in a refereed journal article.
***